Presidential Young Investigator Award: Research in DetectorDevelopment and Particle Physics

This award supports research in elementary particle physics by Dr. Persis S. Drell, a Presidential Young Investigator. Dr. Drell will continue her association with the Mark II detector at the Stanford Linear Collider and will also work on the CLEO detector at the Cornell CESR accelerator. Both of these programs use electron.positron collisions to study fundamental forces in nature. The Stanford experiment is likely to be one of the first to make precise measurements of the mass and lifetime of the "Z" particle, one of the quanta of the electro.weak force field. In her work at Cornell, Dr. Drell will become involved in the study of symmetry breaking in these forces. This phenomenon has wide significance; for example, this kind of symmetry breaking is thought responsible for the small amount of anti-matter in the universe.